Supplemental Contribution of 1992 Gordon Research Conference on Tribology to be held June 15-19, 1992 in Plymouth, New Hampshire

Partial funding is provided for the 1992 Gordon Research Conference on Tribology, "Tribology in Extreme Conditions," to be held June 15-19, 1992. The award will supplement travel and conference fees for graduate students and some invited speakers.